ITR: New Approaches to Human Capital Development through Information Technology Research

EIA-0085952
York, Bryant
Northeastern University

ITR: New Approaches to Human Capital Development through Information Technology Research

The objective of this project is to discover effective mechanisms for reducing the disparity
between the technological haves and have-nots, in terms of employability, income and societal
participation (aka The Digital Divide). Since a disproportionately large number of African-Americans fall in the category of have-nots, we have taken on the "so-called" African American
Problem as our research challenge. Recent data suggest that Hispanic Americans have begun to
close the gap in the Digital Divide. However, this is not the case for African Americans.
Despite years of affirmative action and targeted programs, African Americans as a group have not
benefited in proportion to the resources expended. The Internet, the World Wide Web, and new
information technologies are powerful engines for change and rapid technological change tends to
exacerbate pre-existing social and economic conditions. Thus, the "Digital Divide" continues to
grow because it is firmly supported by existing racial, economic and social divides, despite what
appear to be grand efforts to the contrary. Our project will implement a multidisciplinary
approach to the solution of the Digital Divide problem for African Americans through basic
research in information technology, distributed systems, human computer interfaces, and
collaboration technologies with a central emphasis on how culture expresses itself in and
influences information technologies. We will utilize our results to develop technologies that
diminish the Digital Divide.

In this project we will conduct basic research in distributed systems, information retrieval, human
computer interfaces, collaboration technologies, social/cultural preferences of African Americans,
public policy analysis and culture-specific pedagogies and assessments. A unifying framework
for our project is the development of a culture-specific, distributed, distance learning system for
African Americans based on the single-learner multiple-teacher model. Our basic research is
complemented by a number of educational technology development projects and community
deployment assessments.